Graduate Research Traineeships in the Study of Democratization

The Massachusetts Institute of Technology, through the Center for International Studies, applies to the National Science Foundation for five Graduate Research traineeships to support doctoral students in an interdisciplinary social science training program in democratization. The purpose of the Program is to train a new generation of scholars in substantive issues and methodology which address the intellectual and policy challenges of the post Cold War global environment. Making use of MIT's unique strengths in a variety of social science disciplines, the program provides training in research and teaching in the following thematic areas: 1) The Social Foundations of Democratic Governance; 2) Political Economy of New Democracies; 3) International Intervention and Democratization; 4) Transnational Issues and Democratic Stability; and 5) New Directions in Democratic Theory. Training is carried out through formal course work, interdisciplinary seminars, a mandatory work-in=-progress workshop for students and faculty, and teaching and research assistantships.